Third International Workshop on Squeezed States and Uncertainty Relations; August 10-13, 1993; Baltimore County Campus

Professor Rubin will organize the Third International Workshop on Squeezed States and Uncertainty Relations. This grant will support graduate students to enable them to attend this meeting.